Development of an Advance Aqueous Scrubbing Process for the Simultaneous Removal of Nitrogen Oxides and Sulfur Oxides from Flue Gases by a Sonochemical Method

CBET-0651811
Yusuf Adewuyi
North Carolina A& T State University

Development of an Advance Aqueous Scrubbing Process for the Simultaneous Removal of
Nitrogen Oxides and Sulfur Oxides from Flue Gases by a Sonochemical Method

The results of the project will also be used to develop PC-based multimedia modules on chemical engineering aspects of sonoprocessing to be used to enhance the PI's chemical reaction engineering and pollution prevention courses, and environmental science workshops for middle school teachers. This will enhance the curriculum and recruitment effort of A&T's new interdisciplinary Ph.D program in Energy and Environmental Studies, and serve the pedagogical interest of our mostly minority students and others. The project results will also be disseminated through refereed journals and publicized at technical meetings by the PI and students. It will train minority youngsters in the fields of math, science and engineering.